II-New: A Heterogeneous Team of Field Robots for Research into Coordinated Monitoring of Coastal Environments

This infrastructure proposal supports the acquisition of a multi-robot team suited for operations
in coastal environments. The robot team consists of two underwater vehicles (AUVs), three
surface vehicles (ASVs), as well as unmanned aerial vehicles (UAVs): two fixed-wing UAVs and
two quadrocopters. The target domain is the coastal waters of South Carolina. In several applications
such as environmental monitoring, homeland security, resource utilization, and contamination
tracking, there is a need to track a mass of water, record a set of properties, such as salinity,
temperature, presence of different substances, and also record the position and boundaries
of the said body. The proposed infrastructure will enable computing research for addressing
the above problems.

This project revolves around enabling research on several CISE research
fields at the University of South Carolina, including algorithmic development for multi-robot
coordination, path-planning and state estimation; planning under uncertainty; sensor fusion
from different modalities; and human-robot interaction.